Hydrodynamic Convection of a Passive Scalar in a Two-Dimensional Couette Flow

9424355 Wu In this research we investigate statistical properties of a passive scalar coupled to a two-dimensional (2D) fluctuating velocity field. The experimental object is a free-standing soap film which is driven by a 2D Couette cell. The 2D Couette cell, which has recently been developed in our laboratory, allows precise control of hydrodynamic flow and characterization of various flow instabilities. Our early experiments have shown that a driven soap film exhibits strong spatiotemporal fluctuations in its thickness. A simple calculation suggests that these fluctuations can be treated as a passive scalar and that the viscous-"diffusion" subrange is extensive due to a sharp cutoff at small length scales. We intend to measure the spectral density of the fluctuations as a function of wavenumber using a real- space imaging technique. In addition, the spatiotemporal fluctuations of the velocity field will be measured using a novel fiber-optical velocimeter. We wish to establish correlations between the spectral densities of the velocity field and the passive thickness field in flows with different degrees of stochastic components. %%% Two-dimensional (2D) hydrodynamics and instabilities have largely remained domains for theoretical and computational analysis. However, the subject has great importance for meteorology, oceanography, and a variety of laboratory experiments. This research is geared toward an understanding of a passive scalar, such as dyes or temperature, convected by an imposed fluctuating velocity distribution in two dimensions. Our previous experiments have shown that a free-standing soap film behaves like a 2D fluid, and the fluctuations in film thickness are influenced by the spatiotemporal behavior of the velocity distribution. A simple theoretical analysis indicates that if the fluctuations in the thickness are much less than the average thickn ess, then the fluctuations can be treated as a passive scalar quantity. We will use a video imaging technique to extract statistical properties of the film thickness in space and time and correlate them with the imposed 2D velocity distribution. This research will enrich our general knowledge about hydrodynamic fluctuations in two dimensions and help to refine theoretical models. ***